CAREER: Computation, Combinatorics, and Reality in Algebraic Geometry, with Applications

Sottile will work on projects ranging from research in algebraic geometry
and algebraic combinatorics, to strengthening links between algebraic
geometry and applied science, to educational outreach. His work in algebraic
geometry will focus on concrete aspects of flag manifolds and their Schubert
varieties, involving a range of problems from the real Schubert calculus, from
extensions of quantum Schubert calculus, from combinatorial problems in
Schubert calculus, and from the geometry of Schubert varieties. This will
deepen our understanding of computation, combinatorics, and real-number
phenomena in algebraic geometry. Sottile will study structural properties of
certain combinatorial Hopf algebras, work that has applications to polytopes,
to the Schubert calculus, and to certain combinatorial schemes in physics.
He is actively engaged in applications of computational algebraic
geometry to other fields,particularly discrete geometry and the applied sciences.
A unifying theme in this scientific work is studying concrete mathematical
objects using computer experimentation to inform theoretical work.

While algebraic geometry is concerned with abstract questions about
solutions to equations, its value to other disciplines is largely through concrete
objects and computational tools. A major activity of this project is to help
disseminate the modern computational tools from algebraic geometry to
other fields, including the applied sciences, through research collaboration,
organizing conferences, and co-authoring a textbook on algebraic geometry
for applied scientists. Sottile will also organize an outreach program for talented
high school students in Western Massachusetts with the particular goal of
serving the needs of students in nearby urban areas, many of whom come
from groups traditionally underrepresented in science. The intention of
this work: the research, the technology transfer, the service and the outreach,
is to provide a firm foundation for a lifetime of integrated research and
educational activities for Sottile.